Psychological Perspectives to Environmental and Ethical Issues in Management: A Conference Proposal

This project provides support for a conference entitled, "Psychological Perspectives on Environmental and Ethical Issues in Management." The conference will encourage leading psychologists to contribute intellectually to many of the environmental issues facing contemporary society. The first goal of the conference is to apply psychological research and theory to contemporary environmental and ethical issues. The second goal is to expose psychologists to an important area where their research can make a difference. Issues to be addresses at the conference include decisions over the use of scarce resources, creating polluting byproducts, exposing workers to risky substances, and marketing profitable but potentially harmful products. Leading social, cognitive, and decision psychologists will present their research at the conference and contribute chapters to an edited volume.